Engineering Research Equipment Grant: Auxiliary Equipment for Axial-Torsion Testing Machine

Auxiliary equipment is purchased for an axial torsion materials testing machine. This equipment will upgrade the recently established laboratory capability (axial-torsion mechanical testing device) to perform fatigue and creep cavitation tests in metals and alloys.